MARGINS Education and Planning Workshop: Rupturing Continental Lithsophere at the Red Sea/Gulf of Suez

Funding is provided for an education and planning workshop under the MARGINS initiative to be held in March 2001 on the Red Sea. Red Sea and Gulf of Suez area is one of the two chosen "focus" areas selected by the MARGINS community to study the fundamental processes of rupturing continental lithosphere to form new ocean basins. The workshop will be held in Cairo and Sharam el-Sheikh and will provide a forum for interaction between US scientists and potential collaborators from countries surrounding the focus study area. The workshop includes a 2-day field trip along the Suez rift followed by a 3-day seminar in Sharam el-Shiekh that will summarize the state of the knowledge about the area and discuss further research need.